Workshop on Giant Resonances and Related Phenomena; Notre Dame, Indiana; October 21-23, 1991

This grant provides partial support for a workshop on Giant Resonances and Related Phenomena, to be held at University of Notre Dame 21-23 October 1991. The workshop will be attended by physicists active in the study of nuclear reaction giant resonances.